Biomolecular Interaction Technologies Center

This action funds the existing Industry/University Cooperative Research Center for Biomolecular Interaction Technologies at the University of New Hampshire for the final phase. The Center fosters the development of innovative laboratory instruments and methods for use in pharmaceutical research. The continued growth of the pharmaceutical and biotech areas can be helped by developing more efficient instrumentation that characterizes biomolecules for the synthesis and extraction of new compounds.